SGER: Alliance for Enhanced Computing Education Bridges (AECEB)

The University of Huston Downtown proposes to explore the potential for an alliance of the Center for Computational Science and Advanced Distributed Simulation at the University of Huston Downtown, the San Diego Supercomputing Center, and the West Houston Center for Science and Engineering of the Huston Community College System to significantly impact the number of Hispanic students earning post secondary degrees in computing. With this award they, will assess and develop the partnerships necessary to build a broad alliance that could provide a critical pathway for minority students wishing to enter computing degree programs